Quantum Entanglement, Measurement, and Separability

In this project we continue research on key mathematical problems related to the study of entanglement in quantum mechanical systems, with potential application to quantum computation. A central goal is to extend results on determining when a system is truly in the quantum rather than the classical realm -- the separability problem. These refinements will lead to a better understanding of the mathematical models and the quantification of quantum information, and the results may have impact on the design of experiments.

In the mid-nineties Peter Shor and Lov Grover announced quantum-computer based algorithms that are provably more efficient than comparable algorithms based on classical computers. Construction of a workable quantum computer is a major challenge that requires a clear understanding of both theoretical and technical issues. This research will contribute to that goal by further expanding our understanding of the theoretical models of quantum information and the applicability of those models to quantum computation.